Mathematical Sciences Computing Research Environments

The Department of Mathematics at the Florida State University will purchase a Silicon Graphics IRIS 4D/310VGX graphics supercomputer, which will be dedicated to the support of research in fluid dynamics, dynamical systems, and applications of geometry by members of the department. The equipment will support high end graphics software needed for research on dynamics of galaxies, time dependent shock layer flows, dynamics and structure of the earth's magnetic field, and simulation of jet noise generation. This research is being conducted by four mathematicians; Christopher Hunter, McKenizie Professor of Mathematics; David Kopriva, David E. Loper, and Christopher K. W. Tam.